Research Experience for Undergraduates: Summer of Applied Geophysical Experience (SAGE)

San Diego State University will conduct a university-level research experience focused on modern geophysical exploration. Known as SAGE (Summer of Applied Geophysical Experience), this hands-on research will provide an advanced learning experience for undergraduate and graduate students. Students will participate for 4 weeks in the field segment in the Rio Grande rift near Santa Fe, New Mexico, an area that provides stimulating tectonic research as well as an opportunity to study occurrences of groundwater and hydrocarbons. Research uses seismic reflection and refraction, gravity, magnetics, electrical resistivity, electromagnetics, and magnetotellurics. SAGE students will participate in every phase of the field research from the collection and processing of data to its interpretation, culminating with both an oral and written report. Where the required supervision is available at their home institutions, students will continue their research on their own campuses. This research is augmented by a visit to a SAGE faculty member's campus and attendance at a scientific meeting.